AF: EAGER: Algorithms in Linear Algebra and Optimization

Dr. Schulman's research will tackle two problems of central importance in computer science: (1) Linear programming in strongly polynomial time and (2) Matrix pre-conditioning by diagonal balancing. A strongly polynomial-time algorithm for linear programming would be a breakthrough in complexity theory over the real field. It may lead to improved algorithms for harder types of
convex programming (e.g., semidefinite) which (albeit in polynomial time) are currently prohibitively slow. Better algorithms for matrix preconditioning have the potentially to significantly improve linear algebra software packages.